Production of Secondary Organic Aerosol: Formation of Acids, Peroxides and Multifunctional Oxidation Products

This research is investigating the gas-phase formation pathways of organic acids, hydrogen peroxide, organic peroxides and other multifunctional oxygenated and nitrated compounds in the atmosphere. The P.I. is developing a novel solid phase microextraction technique (SPME) which, combined with gas chromatography/mass spectrometry, will help determine important reaction pathways for the production of secondary aerosols in the atmosphere. This research is of critical importance to understand the biochemical effects associated with atmospheric aerosols and sources of airborne acidity in the environment.